Symposium: Group Technology (GT) and Cellular Manufacturing (CM); March 27-29, 2000, San Juan, Puerto Rico

This grant provides funding for the Group Technology (GT) and Cellular Manufacturing (CM) World Symposium - Year 2000 which will be held in San Juan, Puerto Rico from March 27-29, 2000. The purpose of the symposium workshop is to provide an environment for productive discussions and exchange of ideas between the GT/CM academic and industrial communities. The symposium will bring provide the opportunity for industry-academia interaction and multidisciplinary academic interaction to identify high-impact research areas in GT/CM in order to set an agenda for future academic research. The workshop will bring together leading industry practitioners and academic researchers to discuss issues in GT/CM. The objectives include: (1) establishment of a dialogue between industry and academia on the subject; (2) identification of important research issues in the area; (3) providing industry perspective on future academic research directions; and, (4) setting of an agenda for future academic research on high impact topics.

The success of the workshop will lead to a better understanding of the challenges of GT/CM in the information age. It will help foster industry and academic collaboration. The identification of high impact topics will guide future academic research.